AF: Quantum algorithms for finding versus detecting

Computers that operate according to the principles of quantum mechanics have the potential to dramatically outperform conventional computers at solving certain problems. This capability could have wide-ranging technological and social impact, such as through the simulation of chemistry and materials. However, the types of problems for which quantum computers can provide an advantage, and the extent of the possible speedup, are not well understood. A crucial aspect of the power of quantum computers that remains unclear is the relationship between the difficulty of determining whether a solution exists and the difficulty of actually finding such a solution. This project will explore the interplay between these two tasks, seeking to develop quantum algorithms for finding solutions and to understand cases where finding a solution is much harder than detecting one. By investigating the power of quantum computers through this lens, the project has the potential to significantly advance our understanding of what quantum algorithms are good at, how to design them, and what problems are challenging even for quantum computers. The project will also support development of the quantum workforce through the training of students.

This project will explore quantum algorithms for detecting and finding solutions to computational problems through three main research threads. First, it will study the task of finding paths in graphs. It will address the longstanding open question of whether a quantum computer can efficiently find a path through the so-called welded tree graph, a setting where a quantum algorithm can navigate a graph exponentially faster than any classical algorithm, without recording its route. It will also explore path-finding problems more generally, aiming to establish the fastest possible algorithms for finding paths between designated vertices in arbitrary graphs and to compare this task with merely detecting whether such a path exists. Second, the project will explore the relative difficulty of finding and detecting solutions in more general settings. Intuitively, finding a solution is easier for problems that have small certificates, meaning that the solution can be identified by looking at only a small part of the input. The project will investigate whether large separations between finding and detecting are possible even for problems with small certificates. In addition, the project will explore the power of divide-and-conquer strategies for quantum algorithms, aiming to generalize recent advances for search problems and apply them to develop new algorithms. Third, the project will explore the ability of quantum computers to answer questions about random oracles. While Yamakawa and Zhandry showed that random oracles permit an exponential quantum speedup for search problems, it is a longstanding conjecture that such a separation is not possible for decision problems. The project will aim to make progress on this conjecture from two directions: ruling out such speedups for particular classes of algorithms and trying to identify the largest possible polynomial separation.